Frontiers in Macromolecular Science in the 21st Century; San Francisco, CA; March 26-31, 2000

This travel grant will provide funds that will facilitate travel for young academic scientists from U.S. institutions to attend the 'Frontiers in Macromolecular Science in the 21st Century' conference to be held at the ACS Meeting in San Francisco, CA on March 26-30, 2000. This symposium specifically deals with research focus at the dawn of the new millennium, and diverse topics were chosen to provide a comprehensive vision of future research in academia and industry.